Morphological Tailoring and Properties of Perfluorinated Ionomer/Inorganic Oxide Nanocomposites

Unique perfluoro-organic/inorganic oxide hybrid materials will be formulated by merging processes recently developed for the solution and melt processing of perfluorosulfonate ionomers (PFSI's) and the production of nanocomposites by the in situ sol-gel reaction for silicon and metal alkoxides within the polar clusters of PFSI's. The working hypothesis is that the resultant morphology of the inorganic phase is ordered by the nanophase-separated morphology of the PFSI matrix. In this research, the three-dimensional morphological template presented by the PFSI will be tailored by manipulating the primary polymer structure, polymer solution conditions, film casting procedure, and post-processing (e.g. drying, annealing, melt-quenching, mechanical orientation). The nanocomposites will be extensively characterized for microstructure broadly ranging from light microscopic resolution down to the level of Angstroms using various microscopic, scattering, diffraction, and spectroscopic methods. Structure-property relationships will result from the investigation of the mechanical, thermal, dielectric/electrical conductance and gas permeation characteristics of these materials. The percolative nature of the inorganic phase is anticipated to generate "smart" materials in the sense of acting as temperature and pressure sensors. Oriented nanocomposites should possess directional mechanical, thermal, and electrical properties. The scope of the microstructural investigation will be greatly broadened through strong interactions with governmental (Sandia, Oak Ridge) and industrial (Dow Chemical Co.) laboratories. This research aims to produce new materials that should be act as gas-permselective membranes under rather demanding conditions, and this be useful in a variety of separations. This research is in cooperation with the Electric Power Research Institute.